Tri-Institutional Chemistry Curriculum Enhancement Through Use of Medium-Field FT-NMR Spectroscopy

This project involves the purchase of a medium field Fourier-transform nuclear-magnetic resonance (FT-NMR) spectrometer with a broad-band, multi-nuclear probe, and supporting hardware and software necessary to operate the spectrometer from the two remote instructional sites. The networked spectrometer is enabling the consortium to meet the goals of this project, including the improvement of the quality of chemistry education, increased exposure for students in chemistry courses to the concepts and techniques of modern NMR spectroscopy, and the strengthening of the collaboration between the chemistry faculties of three area schools. Hands-on instruction in NMR spectroscopic techniques begins with two experiments in the general chemistry laboratory and progresses in complexity, scope, and frequency of use through organic chemistry. Undergraduate research in organic chemistry and inorganic chemistry is also being enhanced significantly through the acquisition of this instrument.